Optimal Design of Large-Scaled Structures with Multianalysis-Type Constraints

Research in structural optimization has grown considerably in recent years, in part due to the emergence of powerful supercomputers. However, structural practitioners have achieved uneven success in obtaining optimal design parameter for large- scale structures. The purpose of the proposed research effort would be to develop efficient and reliable iterative procedures for minimum-weight design of large structures subject to multianalysis-type constrains (e.g., displacements, stresses, natural frequencies, and elastic stability). Developments in numerical methods would be carefully reviewer to select the best procedures to initiate, promote and accelerate convergence of optimal values for structural design parameters. The procedures would be organized into structured computer programs to permit periodic updates and enhancements. The validity of the proposed procedures would be checked against data available in the open literature and data generated in the course of a limited program of proposed experimental work. The focus of the effort would be to suggest efficient design procedures for structural practitioners. A three-year research project is proposed.